Oceanographic Instrumentation 2001 RV Weatherbird II

0099467
Bates
This award to Bermuda Biological Station for Research provides instrumentation to expand the oceanographic research capabilities of the research vessel Weatherbird II, a ship operated by BBSR as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. The CTD sensors and pylon provide critical backup systems, and the new meteorological instruments provide a more cost-effective alternative to the existing suite of sensors on the vessel. In addition, we support preparation of a well in the vessel that can in future be used for installation of an acoustic doppler current profiler, although funds to acquire that instrument are not provided at this time. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***